Improving the Undergraduate Psychology Curriculum by Introducing Psychobiological Laboratory Studies

The Trinity College Psychology Department is strengthening its curriculum by equipping a new laboratory for the study of psychobiology. The biological basis of behavior is evidenced by studying the brain mechanisms that mediate or produce such behaviors. The psychobiologist has a rich assortment of methods to study mechanisms that mediate behaviors important to the survival and well-being of the organism. The student in this laboratory has the opportunity to study the feeding, drinking, activity, memory and learning patterns of a laboratory rodent, and to discover the brain areas or systems which may direct or mediate such behaviors. The animal's sensorimotor reflexes, activity levels and ingestive responses are examined pre- and post-pharmacological or surgical intervention. Thus students are introduced to the science of objective observation of the laboratory animal's various classes of behavior. Histological examination of the brain tissue should provide significant information of the bi-directionality of brain and behavior relationships. Such knowledge and training provide the college student with an understanding of experimental methodology in a critical area of science, and an objective view of the important marriage of psychological and biological theories.